Transfer of the Mammal Collection at Chadron State College to the University of Nebraska State Museum

Freeman 9616491 This award assists in the transfer of the mammal collection of some 4368 specimens from Chadron State College to the University of Nebraska State Museum. This is a significant collection, primarily from the Pine Ridge area of Nebraska, and it complements the existing collection at the University. The combined collection will be among the top 30 such collections in North America, with good documentation of reproductive and ectoparasite status of the specimens. The project is a partnership among Chadron State College (which is covering 18% of the total), the University of Nebraska (which is covering 37%), and the Research Collections in Systematics and Ecology program of NSF (which is covering 45% of the total). This project has well- thought out procedures that are time- and cost-effective, the transfer of ownership of the specimens has been made clear in a Memorandum of Understanding, and the Chadron State curator is deeply involved in the project. When complete, the mammal collection at the University of Nebraska will contribute significantly to research and education, as well as public outreach.